Manifold Learning from Unorganized High-dimensional Data Points

The investigator and his colleagues use spectral methods to
investigate a challenging problem in unsupervised learning and
data visualization: given a set of unorganized data points
sampled possibly with noise from an underlying manifold, compute
a set of global coordinates of the data points with respect to
the underlying manifold. The approach is guided by the general
principle that global structures can emerge from careful analysis
of local interactions. The central idea is the exploration of
tangent spaces as representations of local geometry on a
nonlinear manifold using weighted PCA, and the global alignment
of those local tangent spaces to obtain the global structure of
the manifold by way of computing a partial eigendecomposition of
the neighborhood connection matrix. The study focuses on the
following areas: 1) effective local geometric and topological
structures for manifold learning; 2) the interaction of the local
sampling density, noise level, the regularity of the manifold and
the local curvature structure, and their effects on the accuracy
of manifold learning; 3) local smoothing methods to make manifold
learning more robust to noise and outliers; 4) connections with
infinite mixture models, one-class support vector machines and
level set methods; 5) efficient and scalable algorithms for
large-scale manifold learning problems.
With the advancement in modern computing technology, we are
faced with the challenging problems of extracting useful
information from vast amounts of data. The data generated in a
variety of applications tend to have tens of thousands of
attributes, leading to the problem characterized by "curse of
dimensionality." In many applications, however, high-dimensional
data points are governed by a few intrinsic degrees of freedom.
Think of the set of images depicting a horizontally rotating
face: the images are high-dimensional but the intrinsic degree of
freedom of the image set is simply one, representing the rotation
angle of the face. The focus of this proposal is the development
of geometric, statistical, and computational methods for
extracting those latent intrinsic degrees of freedom by modeling
the set of data points as samples from nonlinear manifolds, and
the discovery of the global structure of the manifolds from
careful analysis of local interactions. The results, algorithms,
and techniques developed have immediate applications in
bioinformatics, especially for gene expression analysis for
detecting and distinguishing diseases and disease types; in
appearance-based modeling for people detection using video
sequences generated from surveillance cameras; in helping
intelligence analysts to sift through large amount of textual
information by more efficient modeling of text document
collections; and in enhancing computer-supported collaborative
learning and performance measurement in second language learning.